"A Twelve-Channel Seismograph for Field Work in Under- graduate Geophysics "

This project will strengthen undergraduate instruction in geophysics, and will create research opportunities for undergraduates through the acquisition of a portable exploration seismograph. The instrument to be purchased is an EG&G Geometrics Model ES-1225 twelve channel exploration seismograph. This unit, which has modern microprocessor technology and digital signal enhancement capability, will replace a 15-year-old single channel seismograph. The new instrument will be used in four undergraduate geophysics courses to teach basic principles of data acquisition in seismic exploration; use of computer software for playback, analysis and interpretation of seismic data; and concepts of digital recording, filtering, and signal enhancement. The unit also will be used by undergraduates for senior thesis research in geophysics, hydrogeology, and engineering geology. This two-year grant of $12,495 will be matched by an equal amount of non-federal funds.